Attention, Emotion and Judgement: How Do Minds Figure Out What to Do? An Exhibit Development Project at the Exploratorium

The Exploratorium will develop an exhibit focusing on three areas of mental activity that process perceptions and enable human action: attention, emotion and judgment. Developers will create 32 new interactive exhibits and rebuild six to eight old ones to be part of the museum's permanent collection. The Exploratorium will develop a new area in the museum dedicated to exploring the processes of the human mind and brain, experiment with new ways of creating meaningful mind experiences for visitors and help establish a sense of collective experimentation among science centers in neuroscience and psychology exhibits and programming.